Development of a Technique for Nanoscale Resolution of Fluid Velocity Fields with Emphasis on Flows Over Cell-Surface Nanostructures

The proposed project is to develop a method to directly measure the nanometer-scale fluid velocity in order to characterize the flow field in the vicinity of cell-surface mechanoreceptors. The method is based on use of the atomic force microscopy (AFM) to access the small scale regions on the cell surface. The AFM cantilever tip is modified by placing nanocarbon bundles with a single nanocarbon tube protruding into the flow field. The force on the nanocarbon tube will be correlated to the flow filed to extract the flow velocity information.